REU Site: Research Experiences for Undergraduates Program in Water Research at Colorado State University

Ramirez

The REU Program in Water Research at CSU recruits up to 15 outstanding undergraduate students from water-related programs at CSU, from other four-year institutions in Colorado and across the nation, and up to 3 high school teachers to carry out multidisciplinary research in water at CSU. The characteristics of the institutions targeted are: 1) they have programs that prepare students for water- related careers, 2) they have limited opportunities for student research, and 3) they have high percentages of students from under-represented groups. Each participant will undertake an individual research project under the supervision of a faculty member, typically as a member of a group that includes one or more graduate students. Students will participate in a series of seminars and discussions by invited speakers addressing water issues, including issues of ethics in water resources, and other topics of interest. Several field excursions will introduce students to some of Colorado's and the U.S.'s most pressing water problems. Students will complete their research during the 8-week summer program, preparing a written report and presenting their results orally to their peers in an end-of-summer REU symposium/celebration. Selected students will participate in the Fall Water Center Student Symposium, an interdepartmental gathering of both undergraduate and graduate students undertaking water resources research at CSU. Finally, all students will be invited, expenses paid, to attend CSU's annual AGU Hydrology Days, a professional forum held in mid-April each year.